Distant Galaxy Studies: A Multi-Wavelength Attack on the Early Phases of Galactic Evolution

A multifacted attack on some of the basic problems of distant radio galaxies will be carried out under this research program. Questions to be examined include determination of the earliest times when active galaxies are formed, the maximum power radiated by active galaxies, and the detailed physical morphologies of the most distant (and presumably the youngest) galaxies. Some of the investigations will make use of the 10-meter Keck reflector at Mauna Kea, Hawaii. The Principal Investigator is regarded as a world leader in this research area.